CRCNS 2008 P.I. Meeting

The PIs and Co-PIs of grants supported through the NSF-NIH Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This will be the fourth meeting of CRCNS investigators. The meeting brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks and plenary lectures. The meeting is scheduled for June 1-3, 2008 and will be held at the University of Southern California.